Modeling, Analysis and Applications of Coupled Elasticity and Liquid Crystal Effects

Calderer
DMS-0909165

This project deals with modeling and analysis of
ferroelectric liquid crystals and hydrogels, with the goal of
studying switching and hysteresis of devices made of such
materials. The project on liquid crystals focuses on newly
discovered bent core ferroelectric phases that are capable of
sustaining polarization fields of just one order of magnitude
below that of traditional solid ferroelectric compounds. The
goal of the work on hydrogels is to model a cyclic membrane
appropriate for application to the design of pulsating drug
delivery devices. Such types of elastic membranes are also very
relevant to the study of fuel cells and filtrating devices. Both
problems share distinctive phenomenology and mathematical issues,
such as presenting a first order phase transition behavior
between two distinguished states. In ferroelectric liquid
crystals, they correspond to the oppositely polarized states with
distinct optical properties; a main goal is to optimize the
switching speed between them. Understanding and controlling
hysteresis may help achieve optimal switching. This also
requires a good understanding of the rheology of bent core liquid
crystal flow. Mathematical issues involve non-convexity,
metastability, and coupling of Maxwell's equations with fluid
flow and elasticity. Overall, ferroelectricity is an area of
liquid crystals rich in phenomenology, modeling, and mathematical
challenges that remain largely unexplored.

It is often the case that seemingly disparate problems of
science and technology have common mathematical underpinnings.
In this project, the investigator addresses two of these
problems, with applications in pharmacology and fuel cells as
well as in optical devices, such as video and high speed Internet
switching. The underlying idea is the modeling and mathematical
study of "switching," with the goal of designing faster and more
efficient devices. In pharmaceutical applications, a switch
connects the two relevant states: release and non-release of the
drug to be administered. A goal of the investigator is to model
a cyclic drug delivery membrane. Such periodically releasing
devices are believed to be especially relevant in hormone
therapies, where matching the natural body hormone cycle is
perhaps as important as the replacement hormone itself. In
proton exchange membrane fuel cells, positive hydrogen ions
produced at the anode travel through the membrane, separating
from the fuel and yielding electrons. A ferroelectric switch
connects optically distinct states. In these examples, energy
loss is a common feature of switching dynamics, together with
cycle lengthening in periodic devices. This phenomenon, known as
hysteresis, occurs in many mechanical and magnetic systems. The
investigator harnesses the mathematical knowledge of hysteresis
in other fields as an approach to understanding pharmacological
and liquid crystal devices. Mentoring of graduate and
undergraduate students as well as other educational activities is
intertwined and integrated with the research aspects of the work.